Proximate Mechanisms Regulating Fertility

9604321 Abbott Today, 2.3 million couples in USA are infertile. One third of these cases are due to ovarian-related infertility in women, and psychosocial causes of anovulation contribute to 20-30% of these ovarian impairments. Cooperatively breeding animals (animal societies in which more individuals than the single breeding pair aid in raising the breeders' offspring) provide unique models for the investigation of psychosocial control of ovulation in females. Dr. Abbott and Saltzman are studying a species in which mature, socially subordinate females exhibit profound suppression of ovulation and behavior. This socially induced infertility is not due to generalized stress and can be readily reversed, depending upon a female's social status. By employing specific behavioral and physiological techniques, Dr. Abbott and Dr. Saltzman will examine the neuroendocrine mechanisms by which animals reverse their ability to reproduce. Using state-of- the-art technology in push-pull perfusion, they will measure gonadotropin releasing-hormone from the hypothalamus to determine whether transitory elevations in release of this important hormone mediates the behaviorally-induced transition from the anovulatory state to the onset of cyclicity. The results from these studies will elucidate the behavioral and neural mechanisms underlying the psychosocial control of fertility in females. This basic knowledge will lead to a better understanding of infertility. The results are also important in conservation efforts to help understand problems associated with fertility in endangered species.